Tennessee Information Technology (TN IT) Exchange Center

The Tennessee Information Technology (IT) Exchange Center provides an effective workforce capacity building system by increasing the IT educational strength in a consortium of two year colleges, four year colleges, secondary schools and industries in North Central Tennessee. The goal is to develop a sustainable Center to meet need by industry for a qualified IT workforce. Faculty and students in long-term relationships with experts from industry create real world scenarios based on industrial needs and use them as the basis for instruction in IT courses. The learning strategies are developed in workshops at the Center for Learning and Teaching at Vanderbilt University. The cases are used in high school academies to interest high school students in IT careers. A web site provides information about the availability and content of education and training programs in the region, a clearinghouse of job opportunities and regular communications among partners. Regional stakeholder forums bring industry and educators together to develop a shared vision based upon research for effective delivery of instruction. The audience includes both students in educational institutions and re-careering workers.